The Surface Spectroscopy of a Single Aerosol Particle

This research will extend work on the spectroscopy of single levitated aerosol particles into the surface region with the development of three new spectroscopies. The first, surface tension spectroscopy, to provide a measure of the surface molecular excess; the second, electromagnetic sounding (using fluorescence and second harmonic generation), to provide microscopic information on molecular orientation at the surface and the distribution of molecules in the interior; and the third, phase boundary phase shift spectroscopy, to provide an on-line measure of the water condensation rate at the surface. This will be the first application of all three spectroscopies to investigate microscopic effects associated with water condensation in the presence of surface active species of atmospheric interest. Preparation of surface coatings having specific densities will be facilitated by the use of a proposed microparticle collider. This research will provide new techniques for the study of atmospheric aerosol physical and chemical property.